Supported Liquid Membranes for Electrowinning of Metals

This project has developed the concept of using a supported liquid membrane (SLM) in an electrochemical cell. A supported liquid membrane consists of an organic ion complexing agent and a suitable modifier, forming a solution substantially insoluble in aqueous electrolyte, infused into a hydrophobic microporous polymer support and held in by strong surface tension forces. The ability to provide specific ion transport and low resistivity at high current densities makes the SLM a candidate for a new generation of superior electrochemical separators with a wide variety of industrial applications in electrowinning of metals, electrosynthesis, and the generation and storage of electrochemcial energy. This effort combines further development of SLMs as separators with a strong research effort directed at better understanding the mechanism of electrotransport in SLMs and the factors necessary to provide high specific ionic conductivity to liquid organic phase. This new understanding will aid in choosing SLM compositions suitable for direct electrowinning of pure nickel and cobalt from solutions containing both ions.